Research Experiences for Undergraduates in Chemistry at Wake Forest University

Dr. Ronald E. Noftle and other members of the Chemistry Department of Wake Forest University are being supported to continue a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1995-97, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects across the many subfields of chemistry. Recruiting from a five-state region in the Southeast, the site targets underrepresented groups, students in the early stages of their academic career, and students from smaller four-year institutions. The site features close student-faculty interaction, a hands-on tutorial series on instrumentation, and substantial University cost-sharing.